The fate of lysis products of picocyanobacteria contributes to marine humic-like chromophoric dissolved organic matter

Abstract

This study focuses on the sources and composition of colored dissolved organic matter (CDOM) in the ocean. CDOM is a part of water that absorbs sunlight. This material is important because it filters out harmful ultraviolet radiation. Scientists use it to track the movement of carbon and other important biological and chemical processes in the ocean. Organisms such as algae living in the open ocean have been shown to be sources of CDOM, but the chemical composition of these algal natural products remains to be discovered. Recent results from studying common algae show that viruses may break down algal cells and release material that looks like CDOM. This study will use new tools to find out if viruses and algae are creating this material and study its chemical makeup. This project will support two graduate students and provide summer internships for undergraduates through the NSF Research Experiences for Undergraduates (REU) program. The investigators will participate in a range of education and outreach activities.

The sources and structural nature of marine CDOM within the oceans remain unclear and continue to be a subject of debate. Marine in situ sources of CDOM have been suggested and some have been confirmed, but thus far none could explain the ubiquitous appearance of the so called "humic-like" CDOM component. Unique features of this component include its unusual exponential behavior in ultraviolet-visible (UV-Vis) absorbance with the absorbance extending well above 400 nm, and the large Stoke's shift in fluorescence spectroscopy. Picocyanobacteria are ubiquitous in the World's Oceans and make up 50 % of the autotrophic marine primary production. Preliminary results showed that the picocyanobacteria Synechococcus and Prochlorococcus release CDOM that matched the "humic-like" appearance of globally observed marine CDOM after virus-induced lysis. The main focus of this study is the characterization of the optical properties and molecular composition of viral-lysed DOM (VDOM) from different strains of Synechococcus and Prochlorococcus and additionally Trichodesmium which was shown in a previous study to also release CDOM. Associations between the chemical characterization information and metagenomics and transcriptomics data will be investigated for picocyanobacteria in the Pacific and Atlantic Oceans. This study includes long-term incubation experiments to determine the persistence of picocyanobacteria-derived CDOM as well as changes in microbial communities and processes (gene expression) that are related to the degradation of VDOM during the incubation period.